Close the Gap; Engineering Technology Education and Industry Partnership

The project revamps existing courses to meet the needs of industry and restructures course sequencing to provide a clear pathway to a two year AS degree in Engineering and Manufacturing Technology. The project creates new courses and redesigns the Engineering and Manufacturing Technology curriculum to align with industry standards, provides students with pertinent field experiences, and expands education and industry options for underrepresented students. The project mentors students during their capstone experience, has various outreach activities to increase student enrollments in technology, and has student field experiences and internships at local industries.